Distributed System Observability and Controllability with Finite-Dimensional Sensors and Actuators: Application to Thermal and Fluid Dynamics

9312745 Mohler The object of this research is to develop new observability and controllability techniques for a number of both linear time-varying and nonlinear distributed-parameter systems with internal discrete- time finite-dimensional observation and control. Emphasis is given to location of finite-dimensional sensors and actuators. These problems, being the inverse problems for partial differential equations of traditional interest, have received considerable attention in the literature, mostly in the linear time-invariant setting. On the basis of harmonic and nonharmonic analysis it was shown that in this case observability and controllability of the system in question depend crucially upon the associated eigenvalues (in particular, upon their growth and multiplicity) and, consequently, stationary finite-dimensional sensors and actuators often fail when the space dimension is higher than 1. The research proposed here is aimed to overcome this difficulty on the basis of the introduction of spatially scanning observations and control. In the above context, the proposed methodology mostly deals with the eigenfunctions, while employing in the case of the heat equation, for example, only the sign of the eigenvalues. It is planned to study the interrelation between continuous-time and discrete-time observations and controls for the above systems, interpreting the discrete-time setting as a skeleton for the continuous-time one. The objective of research here is to develop a methodology (introduced in our previous studies) that allows us to replace continuous-time sensors and actuators, the spatially- averaged ones, associated with the set-valued mappings will also be studied. The latter is a natural generalization of the notion of pointwise observations/control for the case of discontinuous generalized solutions, allowing us to ensure the well-posedness of the finite-dimensional observation and control. ***